Velocity Distributions of Suspensions of Large Food Particles During Continuous Sterilization in Holding Tubes

Narrative: Aseptic processing involves continuous food sterilization by heating and packaging that may be sterilized by various methods, including heat. Besides the convenience of continuous sterilization other possible advantages resulting from this strategy include lower cost product packaging and the potential improvement of product quality via ultra-high temperature/short time treatment. Mathematical models with experimental verification will be developed to represent fine and course particle velocity distributions in holding tubes designed for aseptic food sterilization. This work has been proposed because no reliable technique presently exists for continuous in-situ measurement of temperatures within individual particles flowing through tubes. Therefore, the detection of particle "cold spots" would be essentially impossible without predictive theoretical models. Important process parameters that will be investigated include; Reynolds number, particle-to-pipe diameter ratio, radii and orientation of bends, pipe inclination, and particle concentration.